Mechanics of Particular Materials - An International Travel
Grant for the Biot Conference

CMS-9872945, Emir Macari, Georgia Tech

The objective of this International Travel Grant is to support a U.S.
delegation of researchers in geotechnical engineering to the Biot
Conference on Poromechanics, to be held at the Universite Catholique de
Louvain, Louvain-la-Neuve, Belgium, 14-16 September 1998.

The conference will serve as an international forum to exchange information
and experience on deformable porous materials, with applications in
geomechanics, material sciences, geophysics, acoustics and biomechanics.
Related topics include: thermodynamics and constitutive modeling, coupled
diffusion-deformation processes, wave propagation and dynamics. Topics of
particular interest to the US delegation include consolidation and
subsidence processes, poroplasticity and poroviscoelasticity, partially
saturated porous materials, micro-macro relations and homogenization
procedures, fractured porous media, thermo-hygro-chemo-mechanical
couplings. Experimental, numerical and theoretical contributions are
equally welcome.

The U.S. delegation will benefit by being able to interact with researchers
from other disciplines and from around the world, who are working on
similar issues. At the conclusion of the meeting, the U.S. delegation will
develop a recommended course of action for future research in particulate
mechanics as it applies to geotechnical earthquake engineering: this will
be widely distributed via the Internet to US researchers in the field.